Postdoctoral Fellowship: MSPRF: Towards a General Framework for Benign Overfitting

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Erin George is “Towards a General Framework for Benign Overfitting”. The host institution for the fellowship is the University of California - San Diego and the sponsoring scientist is Rayan Saab.